Study of Access of Women Scientists and Engineers to Research Careers

The proposal requests a supplementary grant to conduct follow-up work which would expand the findings of an NSF project currently being conducted by the principal investigator. The purpose of the project is to examine an important transition phase in the careers of future women scientists and engineers--the immediate postdoctoral period, during which a serious differential in participation in S&E occurs. The study includes the entire population of women whom received postdoctoral fellowships from NSF and NRC. Quantitative and qualitative data, obtained through standard survey and analysis methods, are used to provide a fuller description of the existing barriers, and to formulate and test hypotheses that can help guide policy for the reduction of these barriers. The purpose of the supplementary grant request is to conduct indepth, face-to-face interviews and administer a follow-up questionnaire, as important parts of the total project.